Electro and Photoproduction of Kaon and Eta Mesons

This is a request for support for research on predicting spin observables in the
photo- and electro-production of mesons. Our goal continues to be to use the
new and precise cross-section and spin observable data, from Je.erson Laboratory
(JLAB) and from other GeV electron beam facilities, to determine the fundamental
mechanisms of electromagnetic meson production and the associated
dynamics of excited nucleons, and perhaps the nature of hadrons themselves.
Knowledge of nucleon excited states and their form factors provides important
information about the non-perturbative regime of QCD. The photo- and
electro-production of p, ., kaon, and vector mesons are being measured with
high precision using the impressive JLAB large angle spectrometer (CLAS) detector
and the high resolution magnetic spectrometers in Halls A& C.
Polarized targets and beams at JLAB and at other facilities allow a variety
of single and double spin observables to be measured. Our focus is on the
questions: Can we develop a analysis tool that can be used to extract reliable
isobar information from electromagnetic production experiments? What can
one learn from such measurements? Can quark dynamics be incorporated into
the coupled-channels approach we have developed over the last several years?
Does evidence exist for the excitation of unusual baryon states and/or those
predicted by quark models?
The hope is to answer such questions by examining the sensitivity of beam,
target, and recoil-particle cross-sections and spin-observables to underlying resonances,
t- and u-channel exchanges, and to threshold e.ects. In earlier publications,
we deduced general features of spin observables for 0-(p, .,K) and
1-(., ., f) meson production, which are helpful guides in amplitude analyses,
model calculations and in planning experiments. We have been combining such
insights with viable dynamical coupled-channels(CC) calculations, for which collaborations
with Saclay and Argonne National Laboratory have been established
and hopefully will continue. The codes we have developed provide .exible, dynamical
(o.-shell) methods for including important spin-dependent .nal state
interactions along with threshold, cusp, and isobar excitation e.ects. Recently,
we .gured out how to incorporate quark model dynamics. Developing this code
has been a slow process, but we are now ready to apply this project to recent
data and to extend the research to a wider range of mesons and to electroproduction.